Application of Boundary Element Methods to Extended Bond Graphs

9414640 Masada In this research project, a unified approach is developed combining the extended bond graph method, finite element analysis, and boundary element method for modeling and analysis of multi-energetic dynamic systems. These include elasto-dynamic and electro-mechanical systems and solid-fluid interaction models. The research results are applied to a vibrating flat plate, and a conducting beam in a magnetic field. Comparisons for these systems are made using the fundamental concepts of conservation, constitutive relations, discretization, virtual concepts, energy/power transformation, and numerical formulations. The combination of the three well-established techniques greatly extends their individual capabilities and leads to the formulation of a powerful modeling and analysis tool for multi-energetic systems. ***